Collaborative Research: CrustNet: Global determinants of biodiversity in biocrusts, and outcomes for ecosystem function, resistance and resilience

In significant parts of the Earth for the past ~two billion years, soils have included a “living skin” on the surface, made by tiny plants and microbes, and called a biological soil crust, or biocrust. Biocrusts are crucially important for helping to support the ecosystems they inhabit by making soil fertile, storing or redirecting water, and stopping erosion. Biocrusts also boost the diversity of living things present in an area. The CrustNet project will determine what controls the biological diversity of biocrusts around the world. Biodiversity plays an important role in helping ecosystems acclimate and/or adapt to changes in climate and land use, and it can help ecosystems recover after experiencing stress. Thus, a second goal of the research is to determine – in many different places – if the biodiversity present in biocrusts leads to more resistant or resilient ecosystems. This research will also provide data and tools to better predict the outcomes of climate and land use change on biocrusts, as well as the impacts on people that live in and rely on biocrust-rich ecosystems. In the process of conducting these studies, a global network of diverse researchers will be established. The project will also provide a unique training opportunity for a postdoctoral researcher. A documentary film will be produced about the project, shared online and shown at festival screenings to raise public awareness.

CrustNet will be a networked, distributed study of biocrust ecology, with participants distributed globally. Groups of researchers will conduct the same set of studies and collect the same types of data, which will then be pooled together to create an unprecedented global database about biocrusts. All contributors will participate in the preparation and publication of research products. CrustNet will address: (1) determinants of global scale functional biodiversity of biocrusts; (2) determinants of the variability and shape of the relationship between biodiversity and ecosystem function across ecosystems; and (3) effects of biocrust functional biodiversity on ecosystem resistance and resilience to physical disturbance and climate change. A tiered research protocol, including low-cost observational studies and manipulative experiments, will be deployed at many international sites. Tier 1 includes mandatory components such as detailed surveys of the composition of biocrusts, measurement of ecosystem functions along a biocrust development gradient, and contribution of samples to a trait database. Tier 2 includes low-cost experimentally-applied physical disturbance of the soil and subsequent tracking of the response of biocrusts. Tier 3 includes experimental climate manipulations using reciprocal transplantations and rainfall reduction using passive shelters. These experiments will be foundational to our understanding of determinants of biocrust diversity, function and response to disturbance. Providing answers to these lines of inquiry will lead to new global insights, and the ability to compare biocrust microbial biodiversity with those of plant and animal communities. A postdoctoral researcher associated with the project will gain unique experience in international project management and coordination. Information about the project will be disseminated via a publicly-screened documentary film.